Acquisition of a Fourier Transform Ion Cyclotron Resonance Mass Spectrometer

This award from the Chemistry Research Instrumentation and Facilities (CRIF) and the Major Research Instrumentation (MRI) Programs will enable the Department of Chemistry at the University of Florida to acquire a Fourier Transform Ion Cyclotron Resonance Mass Spectrometer (FTICR-MS). This equipment will enhance research studies in the following areas: 1) protein and nucleic acid structure and biochemistry; 2) in vitro selection with an expanded genetic alphabet; 3) enzyme-substrate complexes and isotope effects in trans-Sialidase; 4) expression of trans-sialidase; 5) synthesis of substrates and isotopomers; 6) novel neuropeptides and their function; and 7) three-fold symmetric supramolecular structures for selective recognition.

Mass spectrometry (MS) is a technique used to probe intimate structural details and to obtain the molecular compositions of a vast array of organic, bioorganic, and organometallic molecules.